Configuration Spaces on n-gon Linkages

DMS-0104006
John J. Millson

Millson and his collaborators will explore the geometric
properties of configuration spaces of n-gon linkages in
Lie algebras, symmetric spaces, compact Lie groups and
Euclidean buildings beginning with the question of deciding
when these moduli spaces are nonempty (finding the generalized
triangle inequalities). In addition they will study the finer
structure of these moduli spaces. In particular, they will
study commutative and noncommutative Hamiltonian systems of differential equations on these spaces and use the quantizations
of these systems to obtain results about the representation
theory of compact Lie groups and of the Artin groups of Lie
type. Millson and B.Leeb have obtained necessary and sufficient conditions for the moduli spaces of n-gon linkages in Lie
algebras to be nonempty generalizing well-known results of
Klyachko for sl(n,C). Millson, M.Kapovich and B.Leeb have
found necessary and sufficient conditions for the moduli
spaces of n-gon linkages in Euclidean buildings and symmetric
spaces to be nonempty. In some cases, Millson and
H.Flaschka have constructed (commutative) integrable
Hamiltonian systems on these spaces but the flows are
not periodic. For applications to the representation
theory of compact Lie groups it is critical to find the
associated "action variables," i.e. find Hamiltonians
with periodic flows which are functions of the original Poisson-commuting Hamiltonians. Millson and Toledano-Laredo
have constructed representations of Artin groups of Lie
type by quantizing certain noncommutative Hamiltonian systems.
They hope to construct the trigonometric analogues of their
quantum systems. The results just mentioned may be found at http://www.math.umd.edu/~jjm.

Millson's work begins with one of the first theorems of
high-school geometry - the theorem that if two triangles
have the same set of side lengths then they are congruent.
The analogue for quadrilaterals is clearly false: one can
change a square into a rhombus without changing the side
lengths. So one is led to try to parametrize the set of
all planar n-gons with the same side lengths. From there
one is led to a favorite theme of nineteenth century
mathematics, the study of planar linkages (systems of
rods and hinges). In the nineteenth century such a
study was of immense practical significance - the problem
was to convert linear motion (of a piston rod) to circular
motion (turn a wheel) by a linkage. The problem was
solved by a French naval officer, Peaucellier. It turns
out that from the modern point of view the nineteenth
century work is insufficiently precise. Millson and
Kapovich have corrected the errors and written up a proof
of a result (often attributed to Thurston) that, given
any smooth manifold M, there is a planar linkage whose
configuration space is diffeomorphic to a disjoint union
of a number of copies of M. This result will appear in
the journal "Topology". The above work on planar linkages
led to a study of n-gon linkages in space. This theory is
enormously richer, connecting with symplectic geometry,
integrable Hamiltonian systems and representation theory.
The analogous theory in spherical and hyperbolic three-space
and their generalizations (compact Lie groups and the
symmetric spaces of their complexifications) appears to
connect up with some of the newest objects in geometry
and algebra, for example Poisson Lie groups and
quantum groups.